Noninvertible Dynamical Systems: A Computer-Assisted Study

The investigator studies the dynamics and bifurcations of
discrete-time systems featuring nonunique reverse-time behavior.
He and his colleague investigate two-dimensional endomorphisms
and aspects of three-dimensional endomorphism dynamics, and
develop scientific computation, stability, and visualization
tools necessary for these studies. The basic tool for the study
of noninvertible maps is the notion of a "critical set": the
locus of points where the linearized map becomes singular.
Understanding the forward and backward iterates of the critical
set is the key to understanding the full dynamics of
noninvertible maps. Because trajectories backward in time are
not unique, definitions (e.g. unstable manifolds of saddle
points) and computations (e.g. stable manifolds of saddle points)
involving backward iterates must be extended from the
(invertible) diffeomorphism case to the (noninvertible)
endomorphism case. The interactions of these sets and the system
attractors with the critical set give rise to a class of
important dynamical phenomena distinct from those arising in
diffeomorphisms, and the dependence of such interactions on
parameters gives rise to new bifurcations. Current computational
tools used for simulation, computation of invariant sets, and
study of bifurcations are correspondingly extended, and new tools
are constructed to deal with multiple backward trajectories and
their consequences. The possible geometric explosion of the
number of distinct preimages of a point (or a set) requires new
programming approaches, and scientific visualization becomes
crucial in numerical exploration of global dynamics and their
parameter dependence. Thr project involves work in software
development, numerical investigation, and mathematical analysis.
The interplay of all three is necessary to have any hope of
understanding the dynamics of nontrivial systems. The
investigator plans a systematic computer-assisted study of the
dynamic behavior of noninvertible maps, carried out in a
continuous dialogue between computation and theory, and with
illustrative and technologically relevant applications in mind.
The investigator and his colleague continue studying the
dynamical behavior of typical systems of equations that are used
to model a variety of physical, chemical, and ecological systems.
The goal is to study changes, or "bifurcations," in the
qualitative behavior of these systems as parameters are changed.
The class of models being studied is called "noninvertible
discrete dynamical systems." A discrete dynamical system is one
which provides a rule for predicting some quantity or quantities
at some point in the future (say, one year from now) based only
on the value of that quantity now. By iterating the rule, we can
predict what the quantity will be at any year in the future.
When the rule can be "inverted" to produce a rule to go backward
in time, the system is called invertible. Otherwise it is
noninvertible. The project includes software development,
numerical investigation, and mathematical analysis. The behavior
of these systems is typically so complicated that there is no
hope of understanding them without the aid of computers. On the
other hand, computer investigation alone, without the acompanying
mathematical analysis, generally leads to a very incomplete
understanding. Consequently, all three activities must be done
in concert with each other. With respect to all three activites,
there has been much previous work on one-dimensional (the
dimension is the number of quantities that is being monitored)
invertible and noninvertible systems and on higher dimensional
invertible systems, but work on two-dimensional and higher
noninvertible systems is still in relative infancy. It is this
area on which they focus. Advances will lead to a greater
understanding of this class of models, and therefore the
phenomena that are modeled by them. In the process, they develop
software tools that are of use to others for continued study of
these systems, as well as tools for scientifically visualizing
objects, whether they come from dynamical systems applications or
from any area of science, engineering or mathematics.